Strength, Structure, Chemistry Relationships for Interfaces at Elevated Temperatures

9503723 Gupta A laser spallation technique for the measurement of interfacial strength is modified for in-situ measurements at elevated temperatures. To establish the basic principles and the experimental procedures to facilitate future studies, planar interfaces between 1 to 3 micron thick coatings of Nb and substrates of sapphire are used as model systems. The tensile strength of interfaces is measured up to 1300C and the interface chemistry and atomic structure determined by using a high resolution transmission electron microscope. Transmission microscopy observations at ambient temperature relate the influence of interface interdiffusion, void formation, coating grain size, new phases, thickness of the amorphous layer, etc. to the measured interface strength at elevated temperatures, since the microstructure is likely to be retained when the samples are cooled in air. The tensile strengths of some representative systems chosen from the tribology are determined up to 1300C. %%% The work is not only interdisciplinary in its approach but also in its impact as it serves a particular need in the composites, tribology, thermal spray, microelectronics and other thin film industries. ***